Interference Optical Profilometer for Debris Denting, Spall Formation and Propagation of Tribo-Contacts

9632066 Sadeghi A research equipment grant will support the acquisition of an optical non-contact surface mapping profilometer microscope to support the PI's research on debris denting, spall initiation, and spall propagation in tribo-contacts. ***